Postdoctoral Fellowship: MSPRF: Combinatorial Interpretations of Cluster Coefficients and Scattering Diagrams

This award is made as part of the FY 2025 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Amanda Burcroff is “Combinatorial Interpretations of Cluster Coefficients and Scattering Diagrams”. The host institution for the fellowship is the Massachusetts Institute of Technology and the sponsoring scientist is Alexander Postnikov.